Workshop on P-Adic Dynamics

The emerging field of p-adic dynamics has received a sizable amount of
attention from around the world, including a course at the College de
France given by J.-C. Yoccoz in 2000. The subject promises new
developments in the near future for research in number theory,
topological dynamics, and ergodic theory. In this three-day workshop
scheduled for May, 2005, participants with strengths in these three
fields of mathematics will exchange ideas via lectures and discussions
concerning the work which has appeared up to now, helping to generate
ideas for future research in this subject. Even in the relatively few
years of its existence as a research area, p-adic dynamics has
attracted interest from a number of dynamicists and ergodic theorists
for its parallels and contrasts with complex dynamics, as well as from
number theorists for its applications to the study of iteration of
functions over global fields. A number of fundamental theorems and
surprising pathological examples have already been discovered, while
at the same time several conjectures have emerged as key open
questions in the subject.

Ergodic theory and dynamical systems are relatively young subjects
which evolved to study the chaotic and seemingly random behavior of
nonlinear systems. Their descriptions of chaotic behavior have led to
myriad applications in physics and engineering. On the other hand,
number theory is a subject which has been studied since ancient times,
but whose beauty and intricacy has kept it alive and strong into the
present day, where it has even found applications in cryptography and
coding theory. Now, p-adic dynamics provides an opportunity for
these vibrant subjects to interact in a way that ultimately has
the potential to provide further understanding of all these
applications.